Infrastructure Planning for the Department of Systems and Computer Science

This proposal is for support of the planning and proposal development activities of the Department of Systems and Computer Science (CSC), Howard University. The objective of the Department is to develop, within one year a comprehensive plan for the enhancement and development of the graduate and undergraduate programs of the Department. In particular, the Department will develop a new PhD level computer science program and upgrade our present offerings in the areas of computer science and systems engineering. The resulting comprehensive plan will provide the basis of a new proposal to be submitted, approximately one year from now, to the Computer and Information Science and Engineering (CISE) Directorate Institutional Infrastructure Minority Institutions (II-MI) Program of the National Science Foundation.